Metal Foams as Heat Transfer Enhancement Device

An experimental and theoretical investigation is proposed for the use of metal foams as heat transfer devices. The proposed research will address the following areas: (1) Experimental determination of the utilization of metal foams as heat transfer enhancement devices. (2) Development of a theoretical model for the effectiveness of metal foams as heat transfer enhancement devices. (3) Optimization of the effect of metal foam porosity on the heat transfer process.